Preparation and Crystallization of EF-Tu-GTP-Phe-tRNA and EF-Tu-GMP.PNP for X-Ray Diffraction Studies

Protein elongation factors play a major role in ribosomal protein synthesis. Dr. Jurnak has used both biochemical and X-ray diffraction analyses of elongation factor complexes in her research. Her main goal is to understand the molecular details of each step of the elongation cycle with a special focus on the structural basis for the activity of elongation factor EF-Tu. She will initiate new research projects which focus directly on the macromolecular crystallization problem itself. Dr. Jurnak will explore the feasibility of preparing large quantities of the purified complexes and to crystallizing each in a form suitable for X-ray diffraction analyses. She will also learn quasi-elastic light scattering (QELS) methods; a techique which will help to elucidate key macromolecular properties that affect the crystallization process. These complexes are of considerable biological interest. The Career Advancement Award offers her the opportunity to open up new crystallographic projects and to demonstrate the usefulness of the QELS technique for general applicability to macromolecular crystallization.